Data Visualization: An Interdisciplinary Approach to Reducing the Cognitive Load when Extracting Meaning from Large Data Sets

Information Science and Systems (33)

This project implements an interdisciplinary data visualization course and laboratory for upper-division engineering and science students. To support students' ability to develop custom software applications and to facilitate discovery of features present in large data sets, exemplary materials are adapted and integrated from several sources. The project adapts modules from a Computational Science Across the Curriculum (CSAC) program to create integrated visualization techniques for engineering and science majors using the Visualization Toolkit (VTK), and course materials for graduate students and working professionals are modified for use by undergraduates. Engineering and science students not only learn to understand basic visualization techniques, but also to use a unified, software development platform to create, modify, and test algorithms. Students also contribute to building custom visualization applications that will be used by others including high school teachers and students. The project also includes civic engagement by having students work in interdisciplinary teams to implement, extend, and maintain a repository of contextually-relevant, visualization applications to support inquiry-based learning opportunities for high school students.